A Holistic Examination of Scientific Inquiry in Introductory Biology Laboratories through the Use of Personal Computers

This award provides funds to the Biological Sciences Program at North Carolina State University to make use of the personal computer's ever increasing efficiency in data processing and manipulation. Students for the first time will be allowed to become actively involved in all phases of the process of scientific inquiry in introductory biology laboratories. Students will use the computer to perform simulated investigative projects. Also, the computer will serve as an aid in formulating hypotheses, data collection, analyses and communication of their results to their peers when students work with living materials. Students will begin to build a more realistic appreciation for the vital role of collaboration, communication and verification in research. Their interest in course material should also grow because they are taking a more active role in developing their own and peer learning materials. The grantee is considerably overmatching the award from non-Federal sources.